Application of Multivariate Splines to Certain Model Problems in Nonlinear Partial Differential Equations

This is Expedited Award for Novel Research will initiate the development of a class of computationally efficient, high-order adaptive numerical methods for partial differential equations based on the use of splines. These methods will be developed for, and applied to field problems in Electrical and Mechanical Engineering. Box spline methods were recently developed numerical schemes which provide a general framework for generating piecewise polynomial representation to solutions with any desired smoothness and order of approximation. By combining adaptive features with the advantages of box spline method, algorithms for a number of numerically difficult problems such as the forced cavity flow and the Landau-Lifschitz equations which describe the time evolution of magnetization in ferromagnets. The Principle Investigator will work closely with members of the Howard University Electrical Engineering Department.